Photochemical Reactions of Metal Carbynes

The Inorganic, Bioinorganic and Organometallic Chemistry Program supports research in the area of photochemistry of transition metal coordination compounds. In this project Lisa McElwee-White of Stanford University will investigate the photochemical reactions of metal carbynes which will involve activation of the metal-carbon triple bond and subsequent reaction to form new chemical compounds through novel reaction pathways. This research will be of importance in the understanding of the fundamental processes occurring in the photochemistry of organometallic compounds. The focus of the research will be low valent molybdenum and tungsten carbynes, such as chlorotetrakis(trimethylphosphite)- tungsten phenylcarbyne, which contain ancillary ligands which are not photoactive. Studies of the reactivity of the activated metal carbyne triple bond will be of two types: (a) unimolecular reactions such as ligand rearrangements or intramolecular trapping with tethered functionality; (b) bimolecular reactions with added reagents.